A Wide-Field Imaging System for Living Cells

This award provides funds for purchase of a wide field confocal microscope equipped with two high- sensitivity, intensified charge-coupled-device cameras, a spinning disk-type confocal imaging device, and imaging software. The cells system capable of high speed, dual excitation or dual emission ratiometric imaging, and includes equipment needed for microinjection of living cells. The microscope will be the centerpiece for a new Laboratory for the Study of Developmental Dynamics to be shared by a number of investigators. The high-sensitivity detectors allow extended fluorescence imaging of developing systems that is not possible with laser scanning confocal microscopes, or multi-photon instruments. The system will be used by postdoctoral associates, graduate and undergraduate students, and faculty investigators for a variety of research projects in cell biology, and will provide the basis for an expanded course on modern techniques in optical microscopy.